Mesoscale-Microscale Convective Structures in Type I Cloud-Topped Boundary Layers

Understanding the atmospheric boundary layer and the effect it has on cloud growth is a fundamental meteorological problem that is important to a broad range of atmospheric questions ranging from venting of pollutants to the free atmosphere to the effect of cloud cover on climate. Observations have clearly shown that clouds can form in distinctive and very organized patterns over expansive areas. The Principal Investigator will continue his research on the organization of mesoscale convection that evolves in time within the planetary boundary layer as cold and dry continental air masses advect over relatively warmer bodies of open water. The Principal Investigator will use observational data collected from a previously held field program along with theoretical studies and numerical models to ascertain important characteristics of the boundary layer over Lake Michigan.